Mathematical Sciences: Topics in Modern Analysis

9613833 Marc Rieffel The purpose of this project is to support research on a number of interconnected topics at the frontier of modern analysis, in the general area of operator algebras and group representations. These topics include quantization and quantum groups, aspects of quantum topology and differential geometry, and harmonic analysis on Lie groups. Attention will be given to relationships with applications in such areas as quantum mechanics and field theory, and signal processing.